Federal Interagency Support of Global Geosciences Scientific Planning

0000320
Winokur

Cost sharing is provided to continue supporting interagency activities to encourage and facilitate productivity in the areas of marine science research and education. This funding supports a science assistant to the Research Vessel Clearance Officer at State Dept. The research vessel clearance office provides guidance to embassy personnel, heads of research institutions and government agencies, and other individuals, regarding the implementation of international and U.S. marine policy. The office manages the procedure for arranging international access for U.S. marine scientific research. With the support provided by the science assistant position, the research community obtains an additional point of contact at the State Department through which necessary clearances can be arranged in a timely fashion. Owing to the ever increasing reporting and compliance requirements invoked by foreign counties for granting clearances to conduct ocean research projects in their exclusive economic zones, and the past effectiveness of the science assistant, this remains an important support activity for effectively conducting global ocean science research.